Aposymbiosis and Tissue Regeneration in Montastrea annularis(Cnidaria; Scleractinia)

This is an MRI Planning grant proposal which will develop a plan to manipulate coral transplants and observe their regeneration to artificial injuries under different field situations. During the planning period, the PI will carry out a computer library search on the following three subjects for the last five years: a) Cnidarian - zooxanthellae relationships b) tissue regeneration in cnidarians c) systematics of zooxanthellal Activities directly related to the proposed research include: a) study site selection b) design of the transplant set-up, and c) experimental design